Workshop on Designing Active Learning Activities and Associated Assessment Plans

The project is supporting workshop to disseminate active learning methods for engineering mechanics developed in an earlier NSF project (Award 0442614 ). In previous workshops the investigators have found that providing demonstration materials that the participants can take back to their own institutions greatly enhances the effectiveness of the workshop,. The current project is providing 30 participant with a kit containing a set of low-cost, off-the-shelf, hand-held devices (e. g., spring powered toys, hand tools, foam stress elements, torsion devices and so on). The workshop is being held at the ASEE Annual Conference and widely advertised through the conference publications.